Dissertation Research: Reconstructing the Phylogeny of Anas and Interpreting the Evolution of Behavior

9423465 McKinney The project is a study of the evolutionary relationships among dabbling ducks of the genus Anas using molecular mDNA sequence data. The molecular phylogeny will be compared with morphologic estimates of phylogeny. The evolution of behavioral and plumage characters will then be mapped onto the tree and used to test hypotheses of the evolution of breeding behavior, parental care strategies, plumage variation and courtship displays. %%% The study is significant in providing a phylogenetic framework from which to address broader questions about the evolution of behavior and the ecology of this group of ducks. ***